Novel Triazene Cyclizations: The Chemistry of Haloalkyl- triazenes

This grant from the Organic Dynamics Program supports the continuing work of Professor Richard H. Smith at Western Maryland College. Various cyclization reactions of haloalkyl triazenes to hitherto unknown classes of triazenes will be studied. The mechanism and the role of the metal ion will be investigated for the formation of linear chloropropyl triazenes, and of the new cyclization products, azimines and triazinines, that result from the reaction between 3-chloropropyl azide and Grignard reagents. The chemistry of these new non-aromatic azimines and the hydrolytic decomposition of triazinines will be explored. The ultimate goal is to develop a comprehensive understanding of the relationship between the chemistry of linear triazenes, cyclic triazenes, and non-aromatic azimines. %%% Cyclic triazenes and non-aromatic azimines are new classes of compounds of which the chemistry and hydrolytic decomposition will be studied by Professor Smith and his undergraduate students. The compounds are of interest for physical organic studies to delineate the mechanism of metabolism and triazene degradation in cellular systems.